"Creative Challenge:" A Proposal for a Television Show

9453048 Semper ABSTRACT: The Exploratorium is developing the pilot for a Saturday morning science-oriented, live-action, film and animation, national network television series for teens aged 13 to 17. The half-hour show will present everyday science and the process of problem solving in a fast-paced, hip, and challenge-oriented format. Two teams, each of three teenagers, will compete in a series of challenges which require the application of common sense knowledge, observation, experimentation, and problem-solving strategies useful in science. The object is to demonstrate that real-world problem solving makes use of many skills and may have more than one solution. The Exploratorium will administer the project and will be responsible for the science content. Production will be done by Colossal Pictures, a San Francisco production studio experienced in animation and youth-oriented programming.